RIA: Area-Efficient VLSI Implementation of Signal ProcessingAlgorithms via Multiple Coefficient Recoding

Multiple coefficient recoding techniques for implementing the hardware to multiply a single number of many multiplicands in parallel are investigated. Optimal techniques for recording and appropriate VLSI architectural realizations are considered. Automated layout tools that produce multiple-recoded arrays in VLSI are developed. The applicability of multiple coefficient recoding to several important signal processing operations, including FIR and IIR filtering, DFTs and matrix computations are also studied.